Hydrocarbon Thin Films as Models for Organic Aerosols

With this new award the Organic and Macromolecular Chemistry Program supports the work of Dr. G. Barney Ellison of the Department of Chemistry at the Universito of Colorado in Boulder. The work will involve studying the oxidation of monolayer films of surfactant molecules (such as stearic acid, oleic acid, or 1-oleoyo-2-palmitoyl-3-phosphatyclcholine) plated on NaCl and bombarded with hydroxyl radicals (generated by a corona discharge of H2O in Ar and filtered by an electrostatic hexapole), in the presence of atmospheric gases such as O2, NO, SO2, or O3. Reactions at the surface will be followed by infrared and ultraviolet spectroscopies in a vacuum chamber, and any small molecules emitted measured with a residual gas analyzer.

The reactions to be studied in the research proposed, involving the oxidation of thin organic layers on solid NaCl, are models for the reactions taking place on the outer surfaces of atmospheric aerosol particles over oceans, where biogenic surfactant molecules coat brine droplets formed from ocean spray. Understanding the chemistry is important for modeling the roles of aerosol particles in cloud formation, global warming, and ozone depletion.